Natural Resources for Equity in Science: Connecting Museums and Community Groups

the American Association for the Advancement of Science, in collaboration with the Association of Science-Technology Centers and several science centers, has requested $837,958 in NSF support of a project to make science museums more accessible to minority groups. In the project, AAAS and ASTC propose to provide technical assistance and staff training to science museums on equity issues, with emphases on institutional self- assessment, developing effective science education programs reaching minority audiences, and working effectively with community organizations and other institutions serving minority groups. Several museum sites will be involved initially in the development of the four program components: 1. development of guidelines for an equity self-assessment in museums; 2. science equity training for all museum staff; 3. the development of relationships between museums and community groups and schools and colleges and universities that serve minorities; and 4. a national effort to create awareness among minority groups of employment opportunities in science museums. Additional dissemination will be provided through training workshops and sessions at museum conferences. A "how-to" guide and video will be developed for museums on conducting an equity self-assessment. //